Zeta Functions and Algorithms

Abstract for award DMS-0400647 of Wan

The central aim of this proposal is to give a systematic
study of the p-adic variation of zeta functions of toric hypersurfaces over
finite fields. This naturally has three aspects: theory, applications and
algorithms. We expect to make significant progresses on all three fronts.
On the theoretical side, the PI previously proved that Dwork's unit root zeta
function is p-adic meromorphic but no information about its zeros is known
except in the simpler abelian rank one case. We propose to obtain effective
information about zeros of the unit root zeta function in the general
non-abelian higher rank case, settling this basic problem. This should be
related to the conjectural non-abelian p-adic L-functions and geometric
Iwasawa theory. As a consequence, we shall give a detailed in-depth
study of some important examples such as a family of Kloosterman sums and
a family of Calabi-Yau hypersurfaces, settling some open problems in the area.
On the application side, we propose to investigate the arithmetic mirror symmetry:
the relation between the zeta function of a Calabi-Yau variety and the zeta function
of its mirror variety. An experimental/computational study along this direction has already
been made by Candelas etc who disovered some interesting structures about such
zeta functions via the study of the periods of the Picard-Fuch equations.
We propose to give a rigorous mathematical proof of their conjectures.
Recently, along this line, we proposed several apparently harder arithmetic mirror
conjectures, including the generic slope mirror conjecture and the small slope
mirror conjecture. We plan to make these conjectures precise in a general form
and provide substantial evidence to them, opening new areas of research.
Along the way, the link between our decomposition theorems for generic Newton
polygons and the GKZ principal discriminant would be established, obtaining
arithmetic information about the GKZ discriminant. For the algorithmic side,
we plan to exploit some of the finer p-adic theory and computational commutative
algebra to obtain faster and better p-adic algorithms for the zeta functions,
including the harder singular case. The proposed research would involve several
colloborators and graduate students.

A fundamental problem in number theory is to understand the number of solutions
of a polynomial equation over a finite field. In addition to its intrinsic
theoretic interest, this problem has connections to several major branches of
mathematics. It also has important applications in coding theory, crpyptography,
and combinatorics. We propose to give a systematic study of this fundamental
problem and obtain an improved understanding. We expect to make significant progresses
on both the theory, application and algorithmic aspects of the problem. As
a consequence, we would settle several open problems in the area, establishing
new links with other areas such as p-adic L-function, computational commutative
algebra, toric geometry and mirror symmetry. Due to the diversity and the scope
of this proposal, the proposed research would involve several colloborators and
graduate students. It is hoped that the proposed research would also lead to
several monographs or books which would make this beautiful subject coherent and
accessible.